U.S.-Swiss Cooperative Research on Spectroscopy and Energy Redistribution in Methanol

This award supports Professor David S. Perry and a graduate student of the University of Akron to collaborate in chemistry research with Professor T. R. Rizzo and his research group at the Molecular Physical Chemistry Laboratory of the Swiss Federal Institute of Technology in Lausanne, Switzerland. They propose to study energy redistribution within energized methanol molecules. They will examine three different frequency regions by various methods which take advantage of complementary expertise and equipment within the collaborating US and Swiss research groups. Specifically, the fundamental regions will be studied by direct absorption spectroscopies in Akron, and the higher overtone regions will be studied by infrared- assisted photofragment spectroscopy in Lausanne. The nature and quantity of reagent vibrational energy has long been recognized as a crucial factor in controlling chemical reactivity. Redistribution of vibrational and rotational energy is known to occur on several timescales. As energy is increased, the relevant interactions appear first as discrete perturbations, then as clumps of eigenstates, and finally as unresolvably dense contours. This collaboration will study a particular system, methanol, over a wide range of energies and time scales, in order to improve understanding and discrimination of that range of analytical responses.